Quantum Phases and Dynamics with Ultracold Atomic Gases

The quest for novel and powerful quantum technologies has been a major driving force behind advances in quantum science and engineering over the past few decades. A key ingredient in this progress is the generation of new quantum phases and the precise control of their dynamics. In this context, ultracold atoms provide an ideal platform for engineering and exploring quantum phases, owing to their unprecedented level of control over experimental parameters and their disorder-free environment. Today, ultracold atomic systems are emerging as a major frontier for potentially revolutionary quantum technologies, including quantum simulation, the design of new materials, and quantum sensing. In this project the PI will explore two emerging research directions focused on realizing novel quantum phases and dynamics by exploiting the synthetic momentum space and spin-tensor degrees of freedom of ultracold atomic gases. The PI's theoretical efforts will be closely integrated with experimental progress, both within the PI's collaborating groups and among leading laboratories worldwide. Technical approaches will include analytical treatments and numerical simulations of models designed to capture experimentally relevant effects. The proposed studies will guide ongoing experiments toward the realization of important quantum phases and establish multiple new platforms for fundamental science and technological innovation. The resulting understanding will have broad significance across condensed matter physics, quantum information science, ultracold atomic physics, and quantum sensing, thereby generating a wide-ranging scientific impact. The project also includes targeted outreach activities for K-12 students, such as high school research internships and public lectures, and initiatives to involve students from the St. Louis area. This project will further strengthen existing outreach programs within the Center for Quantum Leap, the Department of Physics, the College of Arts & Sciences, and the Institute for School Partnership at Washington University.

The overall objective of this proposal is to investigate novel quantum phases and dynamics enabled by synthetic momentum space engineering and spin-tensor degrees of freedom in ultracold atomic gases. The specific research aims are: (i) to engineer new quantum phases by treating momentum as a quantized degree of freedom, to study interaction effects in momentum space, and to explore their applications in quantum simulation; and (ii) to investigate transport and magnetic properties, such as spin-tensor driven superfluid-insulator transition and magnetism in optical lattices. These projects will not only enable experimental advances in exploring exotic quantum phases and dynamics but also establish platforms for developing novel quantum technologies, such as quantum sensing and analog atomtronic devices. Furthermore, the proposed research will provide important insights into correlated quantum phases in both real and artificial condensed matter systems.